New Instrumentation and Equipment to Extend Instructional Capabilities in Undergraduate Mechanical Engineering at Rose-Hulman.

The project has two major goals. i) To make experimentation an integral part of a large set of courses in the Mechanical Engineering curriculum which have traditionally relied on the strictly lecture/recitation type of presentation. ii) To provide students with an exposure to complicated instrumentation systems which contain essential features of systems currently used in non-academic environments. The project relies heavily on three general purpose data acquisition modules and one special purpose signal processor-an FFT analyzer. Two complex Mechanical Engineering systems, a laboratory model of a steam turbine and a full scale numerically controlled milling machine, will support the goals of the project. Finally a set of state-of-the-art flowmeters will extend the Department's inventory of scientific instrumentation.